Determination of the Absolute Spectral Radiance of the Sun in the 1um to 5um Spectral Region

The investigators are using an existing instrument, the Absolute Solar Transmission Interferometer (ASTI), to determine the exoatmospheric solar spectral radiance in the 1.0 to 5 micron region. The ASTI, originally developed to measure the solar spectral radiance at ground level for studying radiation budget, has a very large dynamic range, and a spectral resolution of 2 wave numbers. The measurements and their subsequent analysis determine the exoatmospheric solar radiance to a 2 - 3% uncertainty.